Robust Analysis of Variance and Analysis of Designed Experiments

Research will be conducted to produce a coherent system for the robust analysis of designed experiments. Hypothesis tests and confidence intervals as well as estimators will be studied. Mixed effects and random effects models are to be studied as well as fixed effects models. Specifically, a new analysis of variance table with three additional "mean squares" per line will be given based on high-breakdown, high-efficientcy estimates of effects and of scale. The new mean squares will provide information on unusual aspects of the data. Also the robust scale problem will be studied and robust methods for variance components will be given. Tests for significant effects in two to the power k designs without replication will be given. Proposed interactive dynamic graphics for designed experiments will be evaluated.